Fast Scalable Level Four Switching

Looking up the route to send a message is a major bottleneck in traditional
Internet Routers. Traditional routers only use the destination address in
a message to determine how to forward the message. However, in the last
few years, there have been proposals for more sophisticated routers that
are capable of what is called Layer 4 Switching. We believe that the
capabilities provided by Layer 4 Switching in terms of security, quality of
service, and guaranteed service will make Layer 4 Switching an integral
part of the Next Generation Internet.

In Layer Four switching, the route and resources allocated to a packet are
determined by the destination address as well as other header fields of the
packet (such as source address, TCP port numbers etc.). Layer Four
Switching unifies a number of recent trends (such as firewall processing,
resource reservation, providing virtual private networks) into a single
framework. The forwarding database of this new kind of router consists of
a potentially large number of filters on key header fields. A given packet
header can match multiple filters; thus each filter is given a cost, and
the packet is forwarded using the least cost filter that matches the packet
headers.

The flexibility and service differentiation provided by Layer 4 Switching
comes at a cost. Given that traditional Internet forwarding based only on
destination addresses is itself a challenge to implement at Gigabit speeds,
Layer 4 Switching at Gigabit speeds is a difficult problem for next
generation routers. In this proposal, we address the question of designing
and implementing fast algorithms for Layer 4 Switching that can be
implemented at Gigabit speeds even with hundreds of thousands of filters.
We introduce three promising candidate algorithms (cross-producting, Grid
of Tries, and Tuple Search). We propose to implement, evaluate, and
fine-tune these new ideas, consider combination schemes, and to search for
other fast algorithms for fast filter matching. As part of our proposal we
plan to design a chip capable of doing Layer 4 Switching at Gigabit speeds.